A Comparison of the Decision-Making Processes Associated with Good and Bad Outcomes

9308566 Frisch One goal of research in decision making is to evaluate the quality of people's decisions. Decision quality is typically evaluated by comparing people's choices to a normative model such as utility theory. However, it is not clear that conformity to a normative model is associated with favorable outcomes in the real world. The purpose of the proposed research is to empirically derive a standard of good decision making. In particular, by comparing decisions with positive and negative outcomes, expect to identify those aspects of the decision making process that are most important in achieving positive outcomes. We have found that positive outcomes are associated with more rational deliberation than negative outcomes, and that that the amount of deliberation was related to two aspects of the decisions. First, people report engaging in more deliberation for professional decisions than for personal ones. Second, more deliberation is reported for decisions that were framed as choices (e.g., should I buy a product or should I save my money) than those that were framed as opportunities (e.g., should I buy the product or not). The basic goal of this research is to examine these effects in more detail. The proposal includes several retrospective self-report studies in which people describe either positive or negative outcomes that occurred in their lives and the thought processes that led to them. Included is a prospective study of a decision in progress. Finally, the proposal includes a controlled experiment examining the effect of decision context or framing on deliberation. The ultimate goal of the research is to discover the aspects of the decision-making process that distinguish positive and negative outcomes. This research has theoretical implications for how researchers should conceptualize a good decision-making process. It also has the potential to lead to practical advice about how to improve the quality of real-life decision maki ng. ***